MRI: Acquisition of a High Performance Computing Cluster for Research and Education

Today computational science, in addition to theory and experimentation, forms an essential component of scientific inquiry. High Performance Computing (HPC)enables scientific inquiry that was unthinkable just a few years ago.

Under this proposed Major Research Instrumentation Project, Langston University, HPC Center, will acquire, deploy and maintain an HPC cluster supercomputer that will support computing-intensive research and training across a broad variety of STEM disciplines. As a campus-wide shared resource, it will be available not only to all of the LU members but also to researchers across Oklahoma and will enable many areas of CDS&E research.